LTREB: Long-term Research in Environmental Biology: Microevolution in the Fast Lane

0211391
Bell
LTREB
Integrating pattern and process has always been a crucial but frustrating objective for
evolutionary biology. Analysis of rapid evolution in extant populations provides a unique means
to integrate evolutionary pattern and process. To that end, annual samples from the Loberg Lake,
Alaska population of threespine stickleback fish, Gasterosteus aculeatus, will be used to study
rapid evolution. This population was founded by a natural invasion of anadromous (i.e., sea run)
stickleback after the native stickleback population was exterminated in 1982. It has been
sampled annually since 1990, and lateral plate phenotypes have been scored in all samples.
Lateral plates are modified scales that form a single row of armor on each side of the body.
Lateral plate morphs (i.e., complete, partial, low) and low morph-plate number are heritable,
subject to strong natural selection, and exhibit extensive adaptive geographic variation in western
North America.
This study will document maximum evolutionary rates, the trajectory of evolutionary
change, and patterns of transient polymorphism. These patterns can be integrated with known
evolutionary mechanisms. The increasing frequency of low morphs and their declining mean
plate number can be explained by natural selection in many similar populations. Based on the plate phenotypes of the original Loberg Lake stickleback population before it was exterminated and comparison to other lake stickleback populations, lateral plate
divergence should continue in the Loberg Lake population until the low morph is fixed and mean
plate number declines to about five per side. This LTREB award will support continued annual sampling of the Loberg Lake population.
This study will provide an unusually detailed account of rapid phenotypic evolution with implications for divergence during speciation and post-glacial adaptive radiation of threespine stickleback. It will complement ongoing research in paleontology, functional morphology, natural selection, genetics, phylogeogaphy, and developmental evolutionary biology of G. aculeatus. It will prolong a long series of annual samples in which rapid evolution of plates and other traits and trait correlations can be studied.